Jane Goodall Project

9901888
DAY

The Science Museum of Minnesota, in collaboration with Discovery Place and Science North, is producing a pilot stage for a large format film on the life work of Dr. Jane Goodall; her principal research site, Gombe National park in Tanzania; and her study subject, chimpanzees. The film will be a journey into the world of the wild chimpanzee with Dr. Jane Goodall, the best know living woman scientist among adults in the United States. It will chronicle Goodall's life work as well as the work of other researchers in Gombe. Accompanying educational material will include a companion kiosk exhibit, a leadership institute for museum educators, an online program, and women-in-science classes for children and parents. During this pilot stage, the project team will produce large format test footage in Gombe and will further develop the script for the film.

The principal science advisor for the project will be Dr. Anne Pusey, professor and director of the Jane Goodall Institute's Center for Primate Studies at the University of Minnesota. She will serve as a Co-PI along with Mike Day of the Science Museum of Minnesota; Freda Nicholson, CEO of Discovery Place; and Sue Griswold, VP for Programs and Education at Discovery Place. Mike Day also will co-executive produce the film with Jim Marchbank, CEO of Science North.